Analytical and computational studies of direct and inverse boundary value problems for PDEs

Abstract, Award DMS-0307119

Michael Vogelius, Rutgers University

Title: Analytical and computational studies of direct and inverse boundary value problems for PDEs

Project Abstract:

A main object of this project is to delvelop very detailed information
about the response of a system (a PDE boundary value problem) to the presence
of internal inhomogeneities (defects), the spacing of these inhomogeneities,
or changes in the boundary conditions. One important set of tools to obtain
this information are rigorously verfied asymptotic expansions. In the case
of changing, nonlinear boundary conditions another crucial component is
the study of mechanisms that govern the development of (near-)singularities.
The second main theme is then the application of this information to
effectively obtain knowledge about (reconstruct) the parameters of the system
(e.g., the location, and the character of the inhomogeneities) from data
measured on an accessible part of boundary, or in the ``farfield''. Initially
the focus will be on steady state and time harmonic situations, with consideration
of scalar equations as well as systems (in particular Maxwell's Equations).
Later on fully time-dependent cases will also be studied. The work has an
essential computational component.

The particular applications that will be investigated concern 1) anti-personnel
mine detection, using Ground Penetrating Radar(GPR) data, and 2) corrosion/oxidation
imaging (and control) using partial voltage and current data. But many other
applications of significant interest come to mind, for instance in the field of
medical tomography. It is expected that the combination of analysis, asymptotic
analysis and computational work contained in this project will allow for the
design of detection (and location) algorithms that are more precise (less sensitive
to noise), and much faster than those of a general purpose nature. For
reconstructions it is envisaged to work on experimental as well as synthetic data.
I intend to organize two small workshops in the second and third year (of the
period covered by this grant). The first will be devoted to mathematical
and computational aspects of corrosion/oxidation modeling. The second will be
devoted to GPR mine-detection. The participants will be mathematicians and
engineers.